National Museum of Natural History Research Training Program

This award provides funds to the Department of Paleobiology at the National Museum of Natural History to help support 28 undergraduate students who will participate in both a formal curriculum and closely supervised independent research in areas such as systematics, botany, zoology, and paleobiology. Research in and teaching of organismal biology, systematic, and ecology has declined at most universities over the last decade, even though these fields are critical for evaluating and addressing loss of biodiversity and global change. Large research museums still carry out basic research in these fields, but have had little to do with undergraduate education. The Research Training Program at the Smithsonian Institution's National Museum of Natural History (NMNH) is designed to address this problem by stimulating the interest of undergraduates in natural history research through a balanced curriculum of lectures, labs, and independent research. The 10- week long summer program emphasizes an independent research project closely supervised by a member of the scientific staff, but also offers a set of lectures, discussions, field trips, and laboratory and collections demonstrations. The group activities give background material, and also raise issues of theoretical and methodological importance in natural history research. The greatest strengths of the Research Training Program at NMNH are the large number of research staff (over 120 doctoral level scientists and 250 technicians), the breadth of research projects (e.g. morphological and molecular systematic of many groups of plants and animals, morphometrics, paleobiology, behavior, ecology), the size of the collections (more than 119 million specimens of plants, animals, fossils, etc.), and the libraries (over 1 million volumes, and hundreds of natural history journals). The combination of these resources with a Research Training Program that provides both a formal curriculum and closely supervised independent research, creates an unparalleled environment for getting undergraduates started on careers as researchers in the natural sciences.